SBIR Phase I: Novel Separation Technology for a Game-Changing Cellulosic Sugar Biorefinery

This Small Business Innovation Research Phase I project will develop a novel means for isolating solutes including fermentable sugars from ionic liquids. Ionic liquids are the only known solvent for woody biomass and have been shown to support the breakdown of cellulose to fermentable sugars with yields exceeding 90%. However, commercialization of an ionic liquid-based biorefinery process has been impeded by the lack of a technology for separating fermentable sugars from ionic liquid with high recovery of the ionic liquid. The present project will use unique physical properties of ionic liquids and water to effect separation of sugars from ionic liquids with less than 1% of the ionic liquid being lost in the sugar product.

The broader impact/commercial potential of this project spans several strategically important industries including fuels, chemicals, plastics and other materials. Most current and pending renewable routes to these industries rely on fermentable sugars as a feedstock. However, sugars are presently only available from corn, sugarcane and other crops that compete with our food supply, driving up prices particularly affecting lower income societies. Instead, the present project will develop the pathway to a cost effective biorefinery process that produces sugars from non-food plant material.